Development of a Mobile Resonance Enhanced Multiphoton Ionization Time of Flight Mass Spectrometry (REMPI MS) Analyzer for Real-Time Ultra-Trace Gas Phase Monitoring

In this project, a mobile gas analyzer for the detection of NO, NO2, and aromatic hydrocarbons at the ultra trace (ppt) level will be developed. The instrument is based on resonance enhanced multiphoton ionization time of flight mass spectrometry (REMPI/MS) and will feature highly selective real-time detection, direct sampling of air at ambient pressure, and a temporal resolution shorter than one second. Solid state laser technology and fiber optics will be used, making the instrument rugged and mobile.